Quantum Many-Body Theory for Nuclei and Nuclear Matter

Theoretical predictions of atomic nuclei and nuclear matter are key for understanding neutron stars, supernovae explosions, and the synthesis of the elements that comprise the visible matter in the universe. Much progress has been made in the last two decades in calculating properties of nuclei and nuclear matter from the underlying interactions between protons and neutrons, but this remains an ongoing challenge for theory, as it entails carrying out computationally expensive simulations for large numbers of strongly-interacting quantum particles, whose underlying interactions are somewhat uncertain. This project develops new theoretical and computational tools to make such calculations feasible, including extensions to calculate how nuclear systems evolve in time after being disturbed by an external probe and how various properties of nuclei and nuclear matter evolve with temperature. These advances are enabled by combining state-of-the-art quantum many-body theory with techniques from artificial intelligence, machine learning, model reduction, which help one identify simple patterns in the underlying equations, dramatically simplifying computations while preserving their accuracy. These developments will enable fast and accurate calculations of both the structure of atomic nuclei and how nuclear matter behaves under extreme conditions, and will provide theoretical predictions to guide and interpret nuclear experiments and astrophysical observations.

This project will develop microscopic many-body calculations of atomic nuclei and nuclear matter under extreme conditions starting from realistic two- and three-nucleon interactions. The research combines novel extensions of the In-Medium Similarity Renormalization Group (IMSRG) many-body framework with techniques from reduced-order modeling and machine learning to accelerate and extend calculations to finite-temperature and nuclear response properties. This project has three interconnected areas. First, the team will extend the IMSRG framework to finite temperatures and time-dependent response functions, enabling calculations relevant to electroweak observables and dense nuclear matter in extreme astrophysical environments. Second, the team will develop fast and accurate emulators based on reduced-order modeling and machine learning to accelerate IMSRG calculations and enable large-scale uncertainty quantification studies. Third, the team will investigate the scale and scheme dependence of operators coupling nuclei to external probes, with the goal of developing more consistent connections between nuclear structure and reaction theory. These developments will help establish a framework for predictive calculations spanning nuclear structure and reactions, dense nuclear matter, and astrophysical applications while enabling rigorous propagation of theoretical uncertainties.